Collection of Mutant Types of Drosophila melanogaster

The Drosophila Stock Center previously housed at the California Institute of Technology has been transferred to Indiana University at Bloomington, where the Stock Center's role as a resource to the international research community has been expanded. The Stock Center currently maintains over 3000 genetically distinct strains of the fruit fly ÕDrosophila melanogaster plus over 100 strains previously maintained. In 1988, 638 requests for stocks an/or information were processed, resulting in the shipment of 2667 subcultures of strains from the Indiana collection to researchers in 25 countries. In addition to expanding the content of the collection, a computerized database has been established that assists investigators in rapidly determining which strains available from the Stock Center are likely to be relevant to their individual research programs. When strains not available from the Stock Center are requested, information about likely sources of the desired materials is provided whenever possible. In the tradition of the Caltech Stock Center, Drosophila strains that serve as basic tools in a wide variety of research projects continue to be constructed at the Indiana Stock Center. Stock Center personnel also serve the research community as a source of information about successful husbandry and genetic manipulation of this important research organism. The national research initiative for the sequencing of the human genome will be facilitated by pioneering studies using model systems such a Drosophila. This simple eukaryote has a long history of genetic utility and thus much more is known about its genomic structure than any other metazoan. This fact coupled with the small genome size makes Drosophila an ideal candidate for establishing aspects of the paradigm to be used in the human genome project. The Stock Center, in its dual role of culture maintenance and informational clearing house, will facilitate the use of this organism by researchers new to Drosophila as well as the cognoscenti. This project provides partial support for the Stock Centers activities for the next five years.